Fluorine with a Future: Integrating Function and Degradability into Experimental and Computational Molecular Design

Professors William A. Arnold, Sebastian F. Behrens, William C.K. Pomerantz, and Sapna Sarupria at the University of Minnesota-Twin Cities are developing new experimental and computational approaches to define the organofluorine chemical space for products with useful properties and minimized environmental impact. Fluorinated chemicals are used as pesticides, pharmaceuticals, and coatings, but these compounds may not break down in the environment or form persistent fluorinated byproducts if they do. There needs to be a balance between utility of these chemicals and minimized environmental persistence, which is challenging given the strength of the carbon-fluorine bond. Professor Arnold, his co-investigators, and their students will use 19F nuclear magnetic resonance spectroscopy and molecular dynamics simulations to assess which structures are fully degradable and then develop bio-inspired, degradable fluorinated sorbents for per- and polyfluoroalkyl substances (PFAS). Their studies will lead to molecular design principles to optimize fluorine utility and limit impacts on human health and the environment which would benefit both the chemical industry and environmental practitioners. The effort will also create a new option for removing PFAS from water. In addition to training graduate and undergraduate students, the research team will engage K-12 students on topics related to environmental science and water issues through institutional summer programs.

This study will determine if stable fluorinated byproducts are formed via the chemical or biological oxidation of heterocycles with various fluorinated functional groups present on or proposed for use in bioactive synthetic molecules. This will allow identification of structures that should be avoided and those preferred for developing new molecules of use. Once the degradable fluorinated structures are identified, they will be incorporated into bio-inspired molecules that will serve as sorbents to capture PFAS from water. How number and position of fluorinated functional groups influence sorption will be explored using a combination of nuclear magnetic resonance spectroscopy experiments and molecular dynamics simulations. An iterative process that considers degradability, synthesis, and strength of PFAS binding will drive the work. Ultimately, the design of these molecules will be optimized to maximize PFAS capture and ensure degradation of the sorbents by chemical or biological oxidation at the end of their use.